Glacial Geology of the Northern Labrador-Ungava Bay Region: Implications for Deglaciation of the Laurentide Ice Sheet

Despite a general consensus that Hudson Strait played a prominent role in controlling the dynamics of the Late Wisconsinan Laurentide Ice Sheet, including perhaps the tempo of deglaciation, comparatively little detailed field work has been accomplished along its coastlines to identify what role it played. Consequently, reconstructing the history of Late Wisconsinan events in Hudson Strait has become a critical objective toward understanding the dynamics and behavior of the Laurentide Ice Sheet. What information is now available from field work along its coastlines indicates a more complex and dynamic sequence of events than previously considered. The purpose of this research is to contribute toward a better understanding of late Quaternary events in Hudson Strait as recorded on northern Labrador, including the eastern coast of Ungava Bay. This region occupies a critical are for examining (1) the interaction of Hudson Strait ice with ice flowing through Ungava Bay, (2) the carbonate-drift belt across northernmost Labrador, with its important indicator erratics to identify provenance, and (3) deglaciation of outer Hudson Strait and Ungava Bay. Results of this research will provide necessary information for reconstructing events in outer Hudson Strait that ultimately affected a large part of the Laurentide Ice Sheet.